Molecular Dynamics Simulation of Materials Processing Using Linear-Scaling Tight Binding Models

9520315 Teter This award is one made through the FY95 Computational Approaches to Real Materials competition. Funding is provided through the Divisions of Materials Research, Mathematical Sciences and Advanced Scientific Computing, as well as by the Office of Multidisciplinary Activities in the Mathematical and Physical Sciences Directorate. The research combines algorithm and code development with materials theory to address important materials problems for which computational breakthroughs can produce large payoffs. As such, the research spans the strategic initiatives in High Performance Computing and Communications and Advanced Materials and Processing Phase transformation and electronic structure properties of realistically modeled crystalline and amorphous materials will be studied using a new tight binding molecular dynamics code. This new technique represents a compromise between computationally infeasible ab initio techniques and faster - but less accurate - methods that employ classical potentials. The tight binding molecular dynamics method has non-orthogonal basis functions and handles electrostatic interactions. This will allow the study of inhomogeneous systems such as amorphous materials and interfaces, as well as ceramic materials which have significant ionic character in their bonding. The method will build on previous linear scaling techniques which are explicitly parallelizable. The codes will be implemented on the Cornell SP-2. This new technique will allow the study of a variety of physical systems and processes, inaccessible by previous methods, such as solid/liquid and solid/solid phase transformations, defect diffusion in materials and amorphous materials. Besides Cornell, the team includes participants from Corning, Los Alamos National Laboratory, Oxford University, AT&T Bell Laboratories, IBM and DEC. %%% This award is one made through the FY95 Computational Approaches to Real Materials competition. Funding is provide d through the Divisions of Materials Research, Mathematical Sciences and Advanced Scientific Computing, as well as by the Office of Multidisciplinary Activities in the Mathematical and Physical Sciences Directorate. The research combines algorithm and code development with materials theory to address important materials problems for which computational breakthroughs can produce large payoffs. As such, the research spans the strategic initiatives in High Performance Computing and Communications and Advanced Materials and Processing The research will involve a complementary team who will apply fundamental aspects of materials physics to understand and simulate the large scale processing of materials. Such processing phenomena as solid/solid phase transformations and solid/liquid phase transformations will be modeled. In addition, the simulations will be large enough so that the effects of defects and their kinetics will be studied. The use of new algorithms and their implementation on massively parallel computers enable these ambitious calculations to be done. The results will be a major contribution to the design and processing control of new materials. ***